Women in Cognitive Science: Mentoring, Negotiation, and Obtaining Funding

The goal of Women in Cognitive Science is to improve the visibility of women scientists by fostering an environment that welcomes and nurtures young women scholars, to contribute to the professional development of scholars throughout their career, and to facilitate creation of a network that will provide contacts and connections to other women in science. Several workshops are designed for women in cognitive science, especially women in the early stages of their academic career. The workshops focus on negotiation techniques to create opportunities and optimize mechanisms to sustain research visibility and productivity. A second focus is on grant application writing for predoctoral, postdoctoral, and early career scientists. Workshops will take place at meetings of the Psychonomic Society, the Cognitive Science Society, and the Association for Psychological Sciences. The workshops will take the form of a public forum with invited speaker-panelists to initiate discussion about best practices for the professional advancement of women in cognitive science at the individual and institutional level. By partnering with these established societies, the workshops will maximize the outreach potential to a group that continues to be underrepresented in senior academic positions in the cognitive sciences.